Purchase of Instrumentation for NMR Spectroscopy

This award from the Chemistry Research Instrumentation Program will help the Department of Chemistry at Michigan State University to acquire Sparc II workstations and some ancillary equipment. The areas of chemical research that will be enhanced by the acquisition include: 1. Chemistry of Highly Reactive Mononuclear and Polynuclear Transition Metal Cations 2. The Study of the Molecular Basis of Procaryote/Eucaryote Interactions 3. Organic Ferromagnets and Odd-Electron Sigma Bonds 4. Chemistry of Soluble Metal Polychalcogenides %%% Chemists carrying out frontier research are relying more and more on computers that are capable of handling sophisticated simulations, data analysis and graphics software. The workstations which will be purchased with this grant are not only powerful and cost effective computers by themselves, but will serve also as communication links to allow transfer of data to and from other workstations and to provide access to remotely located more powerful computers.